Homoclinic and Heteroclinic Bifurcations, Shock Waves, and Singular Perturbations

9973105
Schecter

The investigators propose to continue their research on singular
perturbations, systems of conservation laws and related systems not in
conservation form, and homoclinic and heteroclinic bifurcation
phenomena. These areas are related: sharp fronts in singular perturbation
problems, and shock waves in systems of conservation laws and related
systems not in conservation form, can be viewed as traveling waves,
which correspond to heteroclinic (or sometimes homoclinic) solutions of
an associated equation. The proposed research falls into four areas: (1)
systems of conservation laws (failure of strict hyperbolicity, geometric
singular perturbation theory and the Dafermos regularization); (2) shock
solutions of initial-value problems for systems not in conservation form;
(3) chaos in a perturbed Rayleigh-Benard convection model that models
the dynamo mechanism responsible for the earth's magnetic field; (4) other
applied problems involving singular perturbation or homoclinic
bifurcation (forced Chua's circuit, multiple-stage cancer models, plasma
and sheath models).

Sharp wave fronts occur in many areas of science. At the first level of
approximation, they are simple traveling waves that keep their shape and
move at a constant speed. Mathematically, traveling waves correspond to
"heteroclinic solutions of ordinary differential equations." These can be
thought of as moving particles that start near an unstable equilibrium and
move toward another unstable equilibrium. Cycles of such solutions often
give rise to chaos. The investigators propose to continue their research in
these related areas. For example, they will study certain unusual shock
waves that arise in model equations for oil recovery. They will study
shock waves for systems "not in conservation form," which arise in fluid
mechanics and elasticity problems when the original systems are
simplified to make them more tractable. They will study chaos in a model
for the earth's magnetic field, which is believed to be related to irregular
reversals of the magnetic field that have occurred in the past. They will try
to improve the "plasma-sheath" models used to model various industrial
situations, such as fluorescent light fixtures; the solutions include a sharp
front.